Department of Scholarships for Financially Disadvantaged Computer Science and Mathematics Students

This program provides scholarships to recruit and retain talented but financially disadvantaged students majoring in mathematics and computer science. Preference is given to underrepresented and female students. The program seeks to improve retention rates, provide academic support for CSEMS awardees, utilize CSEMS awardees as tutors and role models, increase the number of mathematics and computer science majors coming from families with financial need, and link each CSEMS awardee with a faculty adviser/mentor. Additional academic support is offered to CSEMS students through faculty mentoring and tutoring, the Mathematics Assistance Center, and the University tutorial services center.